A CHNS Analyzer to Investigate Resource Use and Availability In Biotic Systems

This proposal involves a request to purchase the Molecular Dynamics 425SI Phosphorimager, a device for the detection and quantitation of radioactivity used in a variety of biochemical experiments. The quantitative and high resolution capabilities of this instrument will allow performance of biochemical experiments not currently possible. The primary advantages of this technology over conventional autoradiography using X-ray film are an increased linear response, dynamic range, and sensitivity, as well as reduced exposure time. The instrument provides quantitative data from experiments involving the use of radioisotopes such as 32p, 35S, 14C, and 1251. An instrument of this type is not currently available in our building (Koshland Hall) at the University of California at Berkeley. The quantitation of radioactive samples will be carried out by the user groups in a variety of biochemical and molecular biology experiments detailed in Section 8. The primary areas of quantitative analysis will be nucleic acid-protein (DNA and RNA) interactions and signal transduction (GTPase activities of signalling proteins). The technology involves the use of storage phosphor screens which store energy from sample beta particle emission. The stored energy is then released by scanning the storage screen with a laser beam. This emission is detected by the instrument and stored on a computer hard disk. The data can then be accessed and analyzed using a software package provided with the instrument and transmitted through an ethernet network to user computer terminals. A number of quantitative biochemical experiments not currently possible will be feasible because the Molecular Dynamics Phosphorimager is vastly superior to X-ray film autoradiography.